Mathematical Sciences: 4-Connected Halin Graphs and Related Topics

Professor Barefoot will study 4 and 5 connected Halin graphs as well as amalgams that generalize Halin graphs. In particular, he intends to study their Hamiltonian properties. Graph Theory goes back perhaps two hundred years, but only in the last half-century has the field become an active, fertile, and flourishing branch of mathematics. A graph is a network of lines ("edges") joining points ("vertices"), thus the language of graphs becomes a natural way of describing interrelationships among separated objects. Graph Theory figures most prominently as an essential tool in Communications Theory and Computer Science.